New Fast Heavy Yap Scintillator Based Particle Detectors

*** Trower 9510000 This Small Business Innovation Research Phase II project will optimize the scintillation characteristics of cerium-doped yttrium aluminum perovskite (YAP) by perfecting the firm's horizontal crystallization technology with which it is produced. This optimization will continue phenomenological efforts to model the scintillation processes in rare earth-doped complex single crystal oxide scintillators. Concurrently, prototype YAP detectors systems will be developed for two nuclear applications -- soft gamma-ray/x-ray spectroscopy with emphasis on Mossbauer measurements and for alpha-particle spectroscopy. High quality YAP scintillators could be used in about 10% of sodium iodide applications. Grain-based alpha-particle detectors have potential in high resolution alpha-particle spectroscopy. Soft gamma-ray/x-ray detector systems have several spectroscopic applications particularly high-rate Mossbauer measurements. ***